MRI: Acquisition of Microwave and Wireless Communications Test and Measurement laboratory

Acquisition of Microwave and Wireless Communications Test and Measurement Laboratory
With this proposal we respectfully request the NSF approval for establishing a critically needed "Microwave
and Wireless Communications Test and Measurement Laboratory" in the College of Engineering at the
University of Hawaii. In an attempt to diversify the tourism-based economy in the State of Hawaii, and help
better prepare a qualified workforce that will attract high tech companies to the State, the State recently
established the Hawaii Center for Advanced Communications (HCAC) with the mission to do multidisciplinary
research in broadband wireless communications and promote much needed ties with industry. The center has
established several initiatives along these guidelines, and the proposed laboratory facility will be used to support
several of these ongoing and growing number of activities. Specifically, it will help the faculty effectively work
on our externally funded research projects, and also help attract industry-sponsored projects for the recently
established Engineering Clinic Program for undergraduates. Examples of the ongoing research projects include:
(a) development of low cost, high performance antenna arrays with beam steering capabilities; (b) propagation
prediction modeling in urban wireless communications environments; (c) development of computational and
power efficient iterative decoding techniques; (d) DSP algorithms for smart antennas, multiuser detection, and
cooperative diversity; (e) retoradiative antenna arrays; and (f) RF and Quasi-Optical devices. Our faculty has
published hundreds of papers in these areas and the proposed lab facility will help extend its capabilities and set
the stage for its future multidisciplinary research directions. As for the Engineering Clinic program, it places
teams (4-5 students per team) in projects proposed and sponsored by industry, and the College charges $25k per
project. All raised funds go directly to support student activities including project expenses, scholarships for all
participating students, and travel expenses for the final design reviews at the locations of the sponsoring
companies. In 2002-2003, the College was able to attract seven projects from in and out of state companies.
HCAC has also been approved to participate as a partner in the NSF Industry/University Collaborative Research
Center (I/U CRC) at Arizona State University and the University of Arizona, and the proposed lab facility will
certainly help support this as well as the growing number of graduate and undergraduate courses being offered
in the wireless communications area. In addition, the proposed lab facility will help in the implementation of
the collaborative program between the College of Engineering and the College of Business Administration
aimed at preparing the next generation of entrepreneurs in communications technology.
Specific components of the proposed lab facility include: (a) a microwave network analysis lab (Agilent
E8361A-Microwave Vector Network Analyzer and an Agilent E4448A spectrum analyzer); (b) an indoor
antenna range (Agilent 8530A-Microwave receiver for antenna measurement); (c) a wireless communications
test-bed (Agilent E4438C signal generator, Agilent 89610A vector signal analyzer, Spirent TSA 5600W
universal interference emulator, and Spirent FLEX5/Q1 RF Ch. Emulator); and (d) for the undergraduate lab an
additional two Agilent 8720 network analyzers (in addition to access to the equipment in the above listed
research labs).
Intellectual merits: With the phenomenal growth of wireless communications technology, and with the
recognized and long-standing distinguished expertise in the communications technology area at the University
of Hawaii (first to propose the ALOHA protocol for packet radio systems that subsequently strongly influenced
the development of access Ethernet protocols), the proposed lab facility will help support several externally
funded (NSF, ARO, DARPA, AFOSR, Raytheon, and TRW) research projects, help promote integrative
research and multidisciplinary efforts that will lead to significant advances in developing next generation
wireless communications technology. This laboratory facility will also help attract industrial sponsors in
programs such as the Engineering Clinic for undergraduates, and support UH participation in the NSF I/U CRC
program with other universities.
Broader impact: With the recognition of this technology as one of the strategic high tech avenues for
diversifying the Hawaii economy and better preparing the local workforce to help attract companies and grow
the industrial base in the State, it is expected that the proposed lab will play a critical role in realizing the vision
and achieving the mission of the recently established HCAC. It will also help attract industrial sponsors in
programs such as the Engineering Clinic for undergraduates, and provide test and measurement capabilities for
local industry and start-ups. The impact of this NSF equipment investment will reach far beyond the University
and would certainly impact the entire State of Hawaiipreparation of its workforce, growth in its high tech
base, and support for its local industry.